Cross-National Variations in Decision Behavior

Cross-National Variations in Decision Behavior This proposal deals with cultural differences in several aspects of decision making. It expands on the cross-cultural project which the PI already has underway. The goals of this proposal are to explore three aspects of decision making: (a) who makes different types of decisions, (b) what it means to be a good decision maker, and (c) how good decisions are justified.